NSF IRNC Workshop

Proposal Number: 0730691
Principal investigator: Alan Blatecky
Institution: University of North Carolina at Chapel Hill
Proposal Title: NSF IRNC Workshop

Project Summary

This workshop proposal describes a workshop addressing networking related requirements to support international collaborative science in the 2010-2015+ timeframe. Scientists involved in international collaborations will participate, as well as international networking experts. Panels and discussion will cover a broad range of scientific projects and initiatives in the context of future networking support needs. The results of the workshop will feed directly as input to NSF in planning the future priorities for the NSF International Research Network Connections Program.